Effect of 85 Years of Service on Mechanical Properties of Timber Roof Members

This project will investigate the load-duration effect of wood structures by studying the condition of the members of an 85 year salvaged roof truss. Using load-duration models of damage accumulation, the mechanical properties of the members will be predicted and compared with the experimental data.